Chomology of Arithmetic Groups and Galois Representations

The principal investigator, together with various collaborators, studies
the cohomology of arithmetic groups as modules over an algebra of Hecke
operators. He considers conjectures connecting (1) mod-p cohomology
classes of congruence groups which are eigenclasses for all the Hecke
operators with (2) mod-p representations of the Galois (symmetry) group
of the algebraic numbers. These conjectures amount to saying there should
exist reciprocity laws (usually non-abelian) connecting the two types of
objects. The conjectures are tested computationally, which leads to
further refinements of them. The principal investigator outlines an
approach for proving them in some special cases. Another set of computer
calculations probe for the existence of automorphic representations of
cohomological type which are not lifted from smaller rank groups. These
are conjecturally connected with reciprocity laws of Langlands type.
Finally, the investigator and a colleague develop a theory of p-adic
families of not necessarily p-ordinary cohomology classes for congruence
groups. They use this to study the question whether non-lifted
automorphic representations are "p-adically rigid".

Algebraic number theory studies the properties of polynomial
functions and equations whose coefficients are whole numbers. Ever since
Descartes invented analytic geometry in the early 1600's, the ability to
solve algebraic equations has been central to mathematics, science and
engineering. In the last 50 years a new set of applications of number
theory has opened up in the field of cryptography. The principal
investigator studies delicate questions involving the fine structure and
properties of solutions to certain systems of algebraic equations.
Although one can often obtain approximate solutions using computers, there
are many very subtle and difficult questions concerning the existence and
form of the exact solutions. There are a number of conjectures on the
table to explain what is going on, and the principal investigator has
contributed some of them. He and his colleagues study these conjectures
by verifying them in some cases by extensive computer calculations, and by
proving them in special cases. At the core of this research is the
surprising connection with geometric objects ("cohomology classes") that
can be constructed in spaces of n-dimensional crystal lattices.